Microcomputer Assisted Physics Laboratory Experiments

The Physics Department will purchase 8 IBM PC's, 3 AT's, analog and digital input and output boards, and the hardware for a network. The computers will provide the facilities for data collection and analysis in introductory and advanced laboratories. They will provide students a way of obtaining larger quantities of data than can conveniently be obtained by hand, and they can collect data on rapidly changing phenomena. In addition, the computers will allow improved data analysis and graphical presentation.